U.S.-Australia Cooperative Research: Radiative Interactions with Atoms and Molecules

9512868 Ginter This award will provide travel support, over a period of two years, to assist a team of four American investigators under the leadership of Prof. Marshall Ginter, Institute for Physical Science and Technology at the University of Maryland, to conduct collaborative research with a team of researchers from the Research School of Physical Sciences and Engineering at the Australian National University under the direction of Dr. Kenneth Baldwin. The project focuses on vacuum ultraviolet (VUV) photoabsorption measurements. The researchers are all active investigators working with UV and VUV spectroscopy. It is anticipated that the collaboration will provide important new information on the importance of these spectroscopic studies in both atmospheric applications and the more fundamental sciences and will assist in identifying and reducing systematic instrumental errors which limit the accuracy of current metrology in the VUV. Among the tools to be used in this study are long focal length spectrographs, Fourier transform spectometers, synchrotron radiation sources, and precision laser systems. The work in Australian is supported through the Department of Industry, Science and Technology.